ITR: Physics of quantum information processing based on photon storage

The recently demonstrated techniques of photon state storage in collective matter excitations will be used to investigate methods for manipulation of quantum information. The specific aims are (1) experimental study of efficient transfer of quantum information between light fields and long-lived collective states of alkali atoms, (2) theoretical studies of quantum information processing based on collective states, and (3) theoretical study of the optical manipulation of solid-state qubits.